REU: Collaborative Research: Molecular, Biochemical and Quantitative Genetics of Glucosinolates and Myrosinase in Brassica

This research will examine the physiological and genetic basis of disease resistance and plant fitness in wild and agricultural populations of the mustard Brassica campestris. Variation in plant chemistry and enzymes that are believed to control resistance to insects and microbial pathogens, will be related to theories about plant protection. Integrating molecular information from the DNA level with biochemistry and quantitative analysis of disease resistance, will lead to a better understanding of the process of plant growth and plant defense. In addition to the fundamental scientific understanding deriving from this work, there are potential agricultural and environmental benefits. This work may lead to genetically improved crops (canola, broccoli, etc.) that are more resistant to insects or diseases and require reduced application of toxic chemical pesticides.